Chapman Conference on Gaia Hypothesis

Chapman Conferences are meetings sponsored by the American Geophysical Union, designed to promote progress in the physical sciences by providing opportunities not normally available through the format of larger meetings. The purpose of this conference is to explore the Gaia Hypothesis along with its numerous consequences and ramifications. A conference on this topic will draw from and involve a large variety of disciplines. The convenors are leading experts from the fields of atmospheric science, oceanography, geochemistry, biology, ecology, geophysics, geology, and philosophy of sciences. Topics to be covered include the homeostatic earth trends over earth's history, challenges to biological homeostasis, and future climate and life.